U.S.-Korea Cooperative Research: High Performance Synthesis with Wave Pipelining

9311863 Ciesielski This award provides funds to permit Drs. Maciej Ciesielski and Wayne Burleson, Department of Electrical and Computer Engineering, University of Massachusetts/Amherst, to pursue with Drs. Whangue Cho and Saeyang Yang, Departments of Computer Science and Computer Engineering, respectively, Pusan National University, Korea, for 24 months, a program of cooperative research on high performance synthesis with wave pipelining. The objective of this collaboration is to exchange synthesis techniques, tools, and benchmarks in an attempt to discover appropriate methods for restructuring combinational and sequential logic to facilitate wave-pipelining. Their research tasks involve studying methods of architectural and logic restructuring such that a circuit can be optimally pipelined with minimum area overhead. Wave pipelining is a method of high-performance circuit design which implements pipelining in logic. As a result, several computational signals related to different clock cycles can propagate through the logic simultaneously. In the present research, the collaborators will undertake a formal treatment of wave-pipelining in which they will describe the timing constraints which must be met in order to safely propagate multiple signals through a computational block. The collaborators are recognized as experts in the field of the proposal. This project is relevant to the objectives of the U.S.-Korea Cooperative Science Program which seeks to increase the level of cooperation between U.S. and Korean scientists and engineers through the exchange of scientific information, ideas, skills, and techniques and through collaboration on problems of mutual benefit. The U.S. scientists will benefit from the unique research and experimental environments provided through access to major Korean electronics industries and a nationally funded VLSI research laboratory with which their Korean counterparts maintain close research cooperation. Korean participation i n the project is supported by the Korea Science and Engineering Foundation (KOSEF). This project adds an international cooperative dimension to the PI's research under NSF Grant No. MIP-9208267. ***